Effects of Nerve Growth Factor on Nucleus Basalis Magnocellularis Cholinergic Cell Recovery and Function

This research will investigate the ability of a large protein, called nerve growth factor, to promote functional recovery in rats who have undergone specific brain lesions. After producing injury to acetylcholine-containing brain neurons, nerve growth factor will be administered into the brain. Its effects on both brain biochemistry and on abnormal behavior produced by the lesioning will be examined. This work is important because it will provide information about how specific chemicals may work to promote recovery of function after brain damage.